REU Site: Summer Research Projects in Contemporary Physics

This award supports the renewal of the Research Experiences for Undergraduates site in Physics at the University of Chicago. The award will support ten students per year for ten weeks of summer research. The core of the program for each student is a well-defined 10- week summer research project under supervision of a University of Chicago faculty member. Projects are distributed among: high-energy, cosmic-ray and astrophysics, general relativity, condensed-matter physics, non-linear dynamics and biophysics. A series of lectures presented by faculty provides an overview of some of the most important research topics currently pursued in these areas of physics.

The interns will learn to communicate science by submitting a written report and making an oral presentation on their work. The program provides students with exposure to the breadth and unity of physics. It brings the REU students into contact with one another. This creates the peer interactions among students that increase the program's excitement and vitality, and helps prepare them for future careers in Physics and in STEM fields in general.